Association of Computer Science and Engineering Departments at Minority Institutions, Organizational and Curriculum Workshop to be held in NY, August 14-17, 1989

As a follow up to the Proposal Development Workshop for Chairpersons of Computer Science Engineering Departments at Minority Institutions held in November, 1988 in Atlanta, the CISE Directorate, will conduct an Organizational and Computer Science and Engineering Curriculum Workshop. The workshop will be coordinated by the IEEE Computer Society. The department chairpersons will be formally organized into the Association of Computer Science/Engineering Departments at Minority Institutions (ADMIS) which will prioritize its CISE program recommendations and assess institutional strengths and weaknesses in the education and research areas supported by CISE. The ADMIs will provide an effective means for assessing the impact of CISE programs and developing plans to strengthen these institutions. Representatives from the Computing Science Accreditation Board (CSAB) and the Accreditation Board for Engineering and Technology (ABET) will make presentations regarding curriculum activities. Invited participants will also include representatives from the Association of Computer Machinery (ACM) and other government agencies with support programs for minority institutions such as NASA, DOD and NIH. An attempt will be made to form a collaborative effort between Federal Agencies to strengthen academic and research programs of minority institutions. Over 60 minority Colleges and Universities are expected to be represented.